MMIA: The Effects of Solar Variability on Global Change

This proposal will study the effects of solar irradiance variations associated with the solar cycle on global change, with the use of a coupled climate/middle atmospheric model. The PI will investigate the potential impact that solar cycle variations may have on the troposphere and the stratosphere and the physical mechanisms by which any such impact occurs. The main focus, due to previously gained knowledge, will be determining the temperature and wind gradients resulting from realistic solar insulation and QBO changes, and their effect on the generation, propagation and dissipation conditions for planetary and gravity waves in the middle atmosphere and troposphere. Additionally, they will assess the potential climate impact of the solar cycling phenomena when integrated over entire solar cycles.***